Department of State Annual Meeting of Science and TechnologyOfficers; Washington, D.C.

The Department of State's overseas Science and Technology Officers will attend their annual meeting in Washington in late September. Past meetings of these officers have been very successful in providing them with briefings on major policy developments and initiatives. The Chairman and Ranking Minority Member of the House Science, Space and Technology Committee, in a letter to Secretary Shultz before his resignation, emphasized the importance the Committee places on annual S&T Officer meetings. NSF maintains close liaison with these officers in order to facilitate gathering information on developments abroad that are likely to have significant impacts on U.S. science and engineering. Joint support of the meeting with the State Department will provide an opportunity for useful working-level conversations with these officers on NSF's special information requirements.